Mathematical Sciences: On the p-adic Geometry of Modular Curves

9307195 Coleman Professor Coleman will continue his work on rigid analysis in particular to applying these techniques to modular curves. He hopes to obtain information about he local behavior at a prime p of the representations attached to a modular form. This project falls into the general area of arithmetic geometry -a subject that blends two of the oldest areas of mathematics: number theory and geometry. This combination has proved extraordinarily fruitful - having recently solved problems that withstood generations. Among its many consequences are new error correcting codes. Such codes are essential for both modern computers (hard disks) and compact disks. ***